Improved Teaching of Histology and Histochemistry

This updated course emphasizes tissue culture methods, in situ hybridization and use of antibodies and fluorescent markers for the identification and quantitation of ions, cytoskeletal components (microtubules, intermediate filaments and microfilaments) and quantitative methods using computers for morphometric measurements. In laboratory exercises the students develop computer microanalysis strategies using enzyme markers to study various tissues (kidney and liver) in normal and drug- treated mice. The same studies are duplicated in vitro using isolated kidney tubule cells for comparison. Each student writes a report and present it to the class for discussion. Extensive use of micrographs from the latest research papers are made with the help of ScanJet IIc and the computer interface.